Purchase of an X-Ray Diffractometer System

Single crystal x-ray crystallography is the most powerful analytical method for structure determination of solids. In synthetic inorganic, organic, bioinorganic and organometallic chemistry, single crystal x-ray diffraction is an invaluable tool to characterize molecular structure. The information gained from the knowledge of the intermolecular composition and structure helps to develop new reactions of potentially general interest in catalysis or synthesis. This award from the Chemistry Shared Instrumentation Program will help the Department of Chemistry at Johns Hopkins University acquire a Single Crystal X-ray Diffraction System. Among the areas of chemical research that will be enhanced by the acquisition are the following: 1. Crystallographic studies of Model Complexes for the Metal Binding Sites in "Zinc Fingers" and Other Metal-Binding Domains 2. Systematic Development of New Organic Conductors 3. Application of an X-ray Diffractometer in the Development of New Synthetic Methods 4. Application of X-ray Structure Determination in Organic Chemistry 5. Studies in Natural Product Biochemistry 6. Structural Studies of Inhibitors of Steroid - Transforming Enzymes